Copper Oxides and Mechanism of High-Tc Superconductivity

Study of a coupling of experiment and theory to explore structural-chemical parameters that constrain theoretical models of superconductivity in oxide superconductors, and to subject promising models to the test of a design of new superconductors.